Analytical Support to the International Space Station Management and Cost Evaluation Task Force's Cost Analysis Support Team - Task Order #39, NASA

Analytical Support to the International Space Station Management and Cost Evaluation Task Force's Cost Analysis Support Team